The Clark Atlanta University Young Scholars Program

The Clark Atlanta University will initiate a six-week, multidisciplinary, residential and commuter, Young Scholars project for 30 students in grades 8-12. This program will provide participants with intellectually challenging experiences in classroom instruction, as well as hands-on research experiences designed to increase interest in -- and knowledge of -- career opportunites in the natural sciences, mathematics and computer science. Participants will be made aware of the academic preparation required to pursue these careers. Program participants in grades 10-12 will conduct research projects as members of research teams consisting of research professors and undergraduate and graduate students; while program participants in grades 8 and 9 will be involved in an interdisciplinary science curriculum with an emphasis on problem solving and research opportunities.